New Monte Carlo Methods for Scientific and Statistical Computing

----------------------------------------------------------------------- Proposal Number: DMS 9803649 PI: Jun S Liu Institution: Stanford University Project: New Monte Carlo Methods for Scientific and Statistical Computing Abstract: Monte Carlo methods have increasingly been recognized by scientists as indispensable tools for difficult computational problems. Its applications include biochemistry, computational biology, computer science, engineering, finance, physics, seismology, traditional statistics, etc. The primary objective of this research, as motivated by various applications encountered by the PI, is on designing and analyzing new Markov chain Monte Carlo (MCMC) methods. The research plan includes three related projects, all concentrating on the MCMC methodology. The first project proposes two new hybrid Monte Carlo methods. These methods combine a gradient-type move, or a conjugate direction-type move, with Metropolis algorithm. The new methods aim at alleviating slow-mixing behavior (or ``stickiness'') observed in discretized Langevin diffusion and molecular dynamics, and can be applied to simulating images, predicting protein structures, neural network training and other continuous-optimization problems. The second project focuses on generalizing the multigrid Monte Carlo (MGMC) method used by physicists in computations of lattice field theories. Our preliminary work reveals a close connection between the MGMC and the reparameterization method in statistics literature. The generalized MGMC proposed in this project unifies these seemingly different methods and provide a generic approach to the search of more efficient MCMC schemes. Its use in random effects model and probit model is currently under investigation and its applications in Bayesian image analysis, such as pattern synthesis and image smoothing, will be explored. The third part of the proposal is concerned with theoretical analyses of the dynamic weighting method recently proposed by Wong and Liang (1997). As shown by the authors, the method has tremendous potential in various optimization problems, such as the traveling salesman problem, circuit partitioning problem, neural network training, and Bayesian model selection. A few variations of the dynamic weighting are suggested and a functional analysis method is outlined for studying convergence properties and weight behavior of the DW. It has long been recognized that many complicated systems, such as reactions in atomic bombs, fluid dynamics, molecular movements, etc., can be studied via computer simulation. One of the most popular approach of this sort, the Monte Carlo technique, simulates a complex system described by probability distributions. The technique was named after the famed gambling resort because its procedures incorporate the element of chance. In the recent two decades, people come to realize that Monte Carlo techniques is also applicable to a much wider class of problems including global optimizations, statistical inferences, signal processing, target tracking, artificial intelligence, financial modeling, computational biology, data mining, and many others. The PI has successfully applied Monte Carlo techniques, together with suitable statistical models, to the understanding of relationship between remotely related DNA or protein sequences; to dynamic system updating (such as target tracking); to neural network training; and to Bayesian statistical inference. This project targets at developing more efficient Monte Carlo methods for dealing with challenging computational problems, such as prediction of the 3-D structure of a protein molecule from its primary sequence. A common feature of all Monte Carlo methods for simulating complex systems is that they rely on cumulative evolutions of small, albeit random, local changes. This often leads to a very slow-converging algorithm. For example, because of s uch local moves, with currently available methods one needs years of super-computer time in order to simulate one tenth of a second of movement of a protein molecule. The PI outlines a general method to conduct global moves in Monte Carlo methods; proposes to incorporate ideas in optimization literature (i.e., gradient and conjugate direction methods) to speed up Monte Carlo simulations; and suggests avenues for the theoretical understanding of several new and promising Monte Carlo methods. Success of this research will benefit scientists and engineers in coping with their computational challenges.